Magnetic Hysteresis and Magnetic Viscosity in Hard Magnets and Thin Films

Experimental research on the magnetic hysteresis behavior of bulk magnets and thin films. The time dependence of the magnetization (magnetic viscosity) will be measured and correlated with microstructure and magnetic domain structure, as observed in transmission electron microscopy.